Optical: Direct Injection Si/SiO2-Erbium Waveguide Emitters For Uncooled DWDM Transceivers and Optical Interconnects

0335067
Koch

This research targets the investigation and demonstration of novel Erbium and Silicon-based technologies for Dense Wavelength Division Multiplexed (DWDM) light sources to achieve higher frequency stability with lower power, cost, and size. This research will involve evaluation of novel fabrication and materials combinations, application of advanced CMOS characterization tools, confocal microscopy providing high-spatial-resolution spectral information, advanced electron microscopy, and a variety of optical device characterization methodologies.

The program integrates research and education, and promotes partnerships with an enhancement of the physical infrastructure and the development of intellectual capital. The intellectual merit of this research will include a heightened understanding of the incorporation of Erbium ion and co-dopants into appropriate Si/SiO2 and Si/SiN structures, hot-electron and tunneling injection physics, oxide degradation mechanisms, and new device designs and fabrication methods for the proposed DWDM sources. The broader impact will include progress towards technology with the potential to significantly impact the economics of high-bandwidth deployment at the network edge. Furthermore, the program integrates research and education, leveraging the strong materials science capabilities at Lehigh and bringing together students from different departments in an interdisciplinary research environment to promote a deep understanding of advanced integrated design, ranging from the merger of basic materials and device physics all the way to system-level performance attributes with great economic benefit to the nation. Through the Optical Technology, Sherman Fairchild, and Advanced Materials and Nanotechnology Centers' liaison and outreach programs, the PI will further integrate working partnerships with industry and incorporate substantive initiatives in education and technical workforce development.